American Chemical Society (ACS) Symposium on Semiconductive Polymers; Dallas, TX; March 29-April 2, 1998

9812089 Galvin An ACS Symposium will be held March 29-April 2, 1998 on semiconductive polymers covering several forefront research topics; Ionically Conducting Polymers and Carbon Filled Polymers, Conducting Polymers, Organic and Polymeric Materials for the Fabrication of Thin Film Transistors, and Polymers for Light Emitting Diodes. The goal of the symposium is to bring together world leaders in the field of semiconductor polymers to discuss the most recent developments. The symposium brings together scientists who work on ionically and electronically conducting polymers with scientists who study polymers for thin film transistors and LEDs to promote cross-fertilization and accelerate the pace of scientific advancement and commercialization. An equally important objective of the symposium is to bring together industrial and academic scientists in an effort to encourage interaction/collaboration. Support from NSF will be used to partially compensate young scientists (junior faculty, graduate students and postdoctoral fellows) for travel and accommodation expenses. They will be active participants with one-quarter of the presentations (talks and posters) being made by students and postdoctoral fellows, and young faculty. The conference is expected to provide an effective forum for discussion of critical scientific issues in semiconductive polymers. Along with the opportunity to assess the field and future directions, it is expected that new ties will be established between universities, research institutions, and industry. %%% Semiconducting polymers have far reaching economic potential since applications range from electroactive membranes and electromagnetic shielding to the active element in transistors or light emitting diodes (LEDs) for flat panel displays. An evaluation of the progress and status of this field along with current assessments of the most important developments will be of great value to the understanding an d enhanced utilization of these materials in applications beneficial to society. ***